High Performance Instrumented Airborne Platform for Environmental Research (HIAPER)

The HIAPER (High-performance Instrumented Airborne Platform for Environmental Research) project consists of a highly modified Gulfstream V (GV) aircraft capable of high altitude, long duration, large payload capability and high speed flight. The HIAPER aircraft is intended to fill an important niche in the national fleet of scientific airborne platforms and will readily and regularly allow higher altitude and longer duration science payload missions than those generally available to the academic research community.